2011-2013 Oklahoma Louis Stokes Alliance for Minority Participation - Bridge to the Doctorate (BD Site - OSU)

The Oklahoma Louis Stokes Alliance for Miniority Participation (OK-LSAMP) under the
leadership of Oklahoma State University will sponsor as sixth cohort of Bridge to the
Doctorate (BD) students at the institution. The program will focus on the
recruitment, retention, mentoring, and graduation of the students from STEM fields
pursuing M. S. and Ph.D. degrees in science, technology, engineering, and technology
(STEM) fields. Special emphasis will be placed on increasing Native American representation in STEM graduate programs and retention to the STEM doctoral degree.

The program objectives for this cohort are: (i) recruitment of 12 LSAMP graduates to the
BD program, (ii) completion of coursework by each BD Fellow within the first two years of the graduate study, (iii) identification of a research mentor by the start of the 2nd year in the program, and (iv) each BD fellow earning at least one graduate degree in a STEM field. The program has also identified four key educational outcomes that each BD fellow must achieve prior to graduation. These outcomes are: (i) knowledge of learning methods and effective teaching strategies, (ii) ability to communicate
effectively, (iii) ability to perform research independently, and (iv) an understanding of
the importance of life-long learning. To achieve these objectives and outcomes, the program has developed a strong and ambitious plan which includes workshops, seminars, socials, meetings, international research
experiences, conference activities for the BD fellows and research mentors.

The evaluation of the program objectives and the assessment of the achievement of educational outcomes include input from students, external program evaluator, and the BD Council. BD Council consists of
members from OU and OSU including the PI of the Oklahoma Alliance.

The proposed activity involves the furthering the research on what constitutes best
practices for the recruitment, retention, and graduation of underrepresented minority
students with doctoral degrees in STEM fields. Collaboration
between the BD program and projects funded through the NSF Experimental Program to Stimulate Competitive Research (EPSCoR)and other public and private section organizations at the university will not only benefit the BD Fellows but also the faculty engaged in research targeted towards promoting diversity in STEM fields.

The potential impacts of the proposed activity are multidimensional. At the institutional
level, success of the BD program will positively impact institutionalization of the best
practices. Diversity in the graduate STEM programs will promote diversity in the
undergraduate programs and vice versa. Institutional commitment to diversity as evidenced by a diverse student population will undoubtedly support the efforts of diversifying STEM faculty. For Oklahoma, it will lead to stronger relationships between K-12 schools including tribal establishments and
STEM programs, diversification of the pipeline for STEM education, and further
stimulating economic development in the state. At the national level, graduation of at
least 12 additional BD Fellows with Ph.D. degrees who have achieved the four key outcomes
stated for the program will have a significant impact on the gender and ethnic profiles of
STEM faculty in academia, as well as industry and other government agencies
employing Ph.D. graduates. Dissemination of best practices through archival paper
publications and presentations at professional conferences will
broaden the impact as more institutional will implement the best practices which will in
turn transform the ethnic and gender distribution of the STEM workforce and also
increase the number of graduates from STEM disciplines.